RIA: Advanced Numerical Modeling of Semiconductor Devices

The computation of the electron distribution function is essential for comprehensive semiconductor device modeling. The primary objective of this research initiation project (RIA) is to formulate physically accurate semiconductor transport models which are suitable of the efficient numerical computation and develop paralledl algorithms for the evaluation of the electron distribution function. The novel aspect of the the work is to describe the motion of electrons in a semiconductor by stochastic differential equations. This approach provides a direct connection between stochasic differential equation theory and classical transport theory, and makes it is possible to apply a plethora of results in stochastic differential equation theory to semiconductor device modeling. Specifically, transport models will be fornulated by approximating discontinous random scattering processes with continous random processes; develop parallel numerical algorithms for the efficient solution of such transport equations; simulate MOSFET devices by solving the transport equations self- consistently with the Poisson equation; analyze the asymptotic behavior in energy of the electron distribution function, etc. The impact of this research is twofold. First, it will introduce a novel approach to the developement of semiconductor transport models based on the theory of stochastic differential equations. Second, the new numerical techniques will lead to powerful CAD tools for comprehensive semiconductor device analysis.//